Collaborative Research: Finite Element Methods for Discretizing Geometric PDEs with Nonlinear Constraints and Gauge Freedom

This project is concerned with the approximate solution of certain
systems of evolution partial differential equations (PDE) arising at
the intersection of mathematical physics and geometric analysis.
Such systems of equations, known as Geometric PDE, with both constraints
and gauge degrees of freedom, appear in a wide range of physical and
mathematical problems; examples include Maxwell's equations (or more
generally the Yang-Mills equations on a curved background), and
Einstein's field equations and other Hamiltonian systems with an
infinite-dimensional symmetry group. The Cauchy formulation for such
systems yields a constrained evolution system which has to be augmented
with gauge-fixing conditions in order to get a unique evolution vector field.
The project will involve constructing finite element discretizations
for solving such geometric PDE systems; various techniques for dealing
with evolution systems with constraints will be analyzed, including
constraint-projection using variational techniques (where the numerical
solution is projected back to the constraint manifold after
some number of time steps), the use of special finite elements which
automatically solve the linearized constraints and thereby remain on a
piecewise-linear approximation to the constraint manifold, and finally
least-squares approaches which only control the constraints rather than
enforce them. In particular, stability results guaranteeing convergence
of the numerical solution to the continuum solution will be derived,
at least for the linearized equations. A posteriori error estimates will
be derived for studying properties of the discretizations, and for
building adaptive methods.

This project involves the design, development, and implementation of
new mathematical and computational techniques for solving a large class
of important, challenging, and pressing mathematical problems in
multiscale and multiphysics modeling and simulation. The techniques
developed will lead to the aquisition of new knowledge in areas of
science such as relatistic astrophysics, by making possible more reliable
and accurate simulations of phenomena such as gravitational collapse,
nonlinear stability of deformed rotating black holes, binary black hole
collision, and the production and emission of gravitational radiation.
Most of these problems are currently of great interest due to the
recent construction of gravitational wave detectors such as the NSF-funded
LIGO devices in Lousiana and Washington. The results from this project
will have a broad impact on areas of mathematics such as geometric analysis,
as well as in astrophysics and general relativity. The methods developed
here will contribute to the advancement of numerical methods for complex
three-dimensional constrained nonlinear dynamical simulations, and the
technology produced will provide powerful tools for the exploration of
models in astrophysics and relativity as well as in some areas of pure
mathematics such as geometric analysis.